Visual Perception as Statistical Inference

9631682 KERSTEN One of the great mysteries of science is how the human visual system determines what and where objects are just by looking. When viewing a scene, the visual system solves, in an instant, the problems of recognizing objects, deciding what they are made of, and where they are relative to each other and the viewer. The seeming effortlessness of this achievement is all the more remarkable because the image input to the eye is locally ambiguous, i.e., in any patch of an image, there is rarely an unequivocal cue to how far away it is, what it is made of, or how it is illuminated. Somehow, the brain makes its best bet as to what is out there from this ambiguous image, and these decisions are rarely wrong. In addition, the image of an object is highly variable depending on illumination and viewpoint. For example, illuminating an object from the left or right has relatively little effect on our perception of the object, despite the fact that the object's two images are quite different. This research stems from the hypothesis that vision solves the problem of ambiguity by exploiting the constraints on how images are formed and on the a priori statistical regularities inherent in object and scene structure. From this point of view, vision is a process of statistical inference that makes good bets based on available information and solves the problem of variability, in part, by constraints that are determined by the task itself, such as determining where, rather than what, an object is. This research will investigate human perception of the spatial layout of objects and object properties. Vision determines spatial layout from well over a dozen sources of depth information, including cast shadows. It is well-known to artists that the closer the image of an object's shadow is to the object itself, the closer the object is to the surface receiving the shadow. How visual perception makes this inference is not clear, because local image informatio n does not uniquely specify whether a local brightness change is a shadow or not. This research will identify constraints in the image and scene that resolve the ambiguities in the perception of depth from shadows. As for the perception of spatial layout, determining object properties and identity is also confounded by local ambiguity as well as by variability in illumination. Experiments comparing the performance of human and statistically optimal observers for inferences about object shape, material and identity will tease apart the relative roles of prior knowledge and image cues in removing uncertainty about the properties of objects. Visual perception is a major way in which we acquire knowledge of the world. Computer scientists have yet to produce a machine that can recognize objects in natural images. Understanding how human vision resolves ambiguity about object location and identity promises to guide the development of artificial vision systems and help to unravel the mysteries of the brain itself. ***